Collaborative Research: Climate Change in the Lowland Neotropics during the Last Glacial-to-Interglacial Cycle--A Site Survey for GLAD800 Drilling

This research will examine a suite of cores from the Peten Lakes District in Guatemala to examine the pre-Holocene record of climate change in tropical lakes that did not dry out in the last glacial. The sediments of these lakes contain the potential for preserving a unique and full record of rapid climate change from an area of the world with few continuous climate records.